Mathematical Sciences: Topology and Geometry of Manifolds

Dr. Cochran plans to continue his studies on concordance of links and on invariants of manifolds of dimensions 3 and 4. The linking phenomena Dr. Cochran is studying are indicative of new phenomena relating to the classification of four-dimensional spaces. He will also study aspects of manifolds which have significance in the context of physics. Three and four-dimensional manifolds are important to us, since we live in a three-dimensional manifold if we ignore the time dimension and a four-dimensional manifold if we do not. What is intriguing about some of this work is that ideas from physics are solving purely geometric problems, not only the other way around, which is more to be expected.